Beyond Single Interferograms: Inference of Subsurface Processes with Subtle Deformation Signatures from Time Series InSAR

Beyond single interferograms: inference of subsurface
processes with subtle deformation signatures from time
series InSAR

Howard A. Zebker, Paul Segall
Stanford University

InSAR, an exceptional technique for visualizing and
quantifying crustal deformation patterns, has largely been
limited in application to arid environments. Subtle
phenomena such as interseismic strain accumulation or
pre-eruptive deformation of volcanic edifices can produce
surface signatures that are undetected in single radar
interferograms because of i) temporal decorrelation noise
due to vegetation and ii) propagation through a
spatially-variable troposphere. We propose to view these
small signals using data acquired by Envisat, a new
satellite launched by ESA in March 2002. This new radar
incorporates electronic beam steering, which permits
multiple observations of a given study site during a
single orbit cycle. Furthermore, rapid beam switching
enables a ScanSAR capability for imaging wide swaths.
Although the satellite is to be orbited in a 35 day
repeat orbit similar to that of ERS-1 and –2, ScanSAR can
yield much denser temporal data, with each point on the
ground imaged four times during each cycle. We propose
here to develop algorithms and methods to produce routine
ScanSAR interferograms resulting in dense deformation time
series measurements. We also will develop filters based
on spatio-temporal models of expected signals and error
sources to coax deformations from within the noisy
background.